Exoskeletons for Knee Osteoarthritis: Optimizing Assistance to Reduce Joint Loading

Knee osteoarthritis (OA) is a painful joint disease. It can make walking, exercise, work, and daily life harder for millions of older adults. One reason OA can get worse is that each step can place large forces on the knee. Current non-surgical options, such as braces, shoe changes, and coaching people to walk differently can shift force within the knee but do not greatly lower the total force. This project will test a new idea: personalized robotic exoskeletons to help the knee and ankle during walking. The exoskeletons may let the user’s muscles produce less force, which may lower forces passing through the knee. The research team will study whether this support can reduce knee loading and make walking feel better for people with OA. The work may lead to future lightweight devices that help people stay active, reduce pain, and delay or avoid more invasive care. The project will also train students in robotics, biomechanics, and rehabilitation engineering. The project will include people with OA in the research process, share data and software, and use exoskeleton demonstrations in STEM outreach.

This project will find, for each person, the exoskeleton assistance pattern that best lowers peak tibiofemoral contact force. This is the force between the thigh bone and shin bone at the knee. The team will first refine a fast knee-load estimator based on electromyography, a measure of muscle electrical activity, along with motion and walking data. This estimator will be checked against a more detailed computer model of the muscles and skeleton that estimates knee forces after each walking trial. The team will then use the estimator during treadmill walking with a tethered knee-ankle exoskeleton. In healthy adults, the device will test many knee and ankle torque patterns, or patterns of turning force. A human-in-the-loop optimization method, in which a computer changes the device while a person walks, will rank which patterns reduce the two main knee-force peaks in each step. The best patterns from these studies will narrow the search for adults with early-stage knee OA, reducing walking time and improving safety. In the OA study, the team will measure knee loading, walking motion, pain, comfort, and satisfaction. The team will also interview participants about device use. The main hypothesis is that optimized knee and ankle assistance can reduce peak knee contact force by about 20 percent during walking. The results will show how robotic assistance changes muscle activity and knee loading. They will also guide future mobile exoskeletons for daily use.